Enhancing Psychology Research with a Computer Lab

The project aims to improve the quality of undergraduate education in statistical methods, experimental psychology, and honors research by providing high-quality research and analysis tools for student lab exercises and projects. Nine microcomputers, one laser printer, 12 copies of a statistical software package, 10 copies of a run version of experimental psychology software, and three copies of a meta-analysis software package will be added to existing equipment and organized into four types of units: (a) 12 statistical analysis stations for sophisticated univariate and multivariate analyses; (b) one experiment development unit with 26 prepared experiments and the capacity to create a wide range of experiments; (c) 12 experiment run stations for collecting data from experiments created on the development unit; and (d) three meta-analysis units for quantitative literature reviews. The equipment would raise the quality of student activity in several courses, improve students' graduate training prospects, and compensate for meager institutional computing resources. The department's success in attracting a large number of majors (9%) and preparing almost half of them for graduate school (45%), in addition to the university's substantial percentages of women (64%) and minorities (30%; hispanics 17%), make this project very valuable.